MRI: Acquisition of an ICP-MS Supporting Interdisciplinary Undergraduate Research in Biogeochemistry, Materials Science, Archaeological Chemistry, and Bioinorganic Chemistry

This award will support the purchase of an inductively coupled plasma mass spectrometer (ICP-MS) with laser ablation and mercury speciation capabilities. This instrument will enable cutting-edge, interdisciplinary research by researchers at Grinnell College working in the areas of: 1) pollution control and prevention, with a focus on water quality; 2) carbon cycling in arid environments; 3) renewable energy generation and storage; 4) analysis of archaeological artifacts to reconstruct human history; and 5) novel approaches to chemical synthesis. The instrumentation will promote faculty-mentored undergraduate student research and education at Grinnell, giving students and faculty access to modern, cutting-edge instrumentation for elemental analysis in both research and active-pedagogy driven coursework. Grinnell College has a longstanding commitment to diversity, inclusion, and access in the sciences; the research supported by this MRI award will also help to broaden participation of historically underrepresented students in the fields of geoscience, environmental science, and materials science.

The ICP-MS to be funded is a Perkin Elmer Nexion 2000 ICP-MS with associated autosamplers for mercury speciation (Brooks Rand MERX-M and MERX-T) and laser ablation (LA) system (ESI NWR213). Specific applications of the instrument include: 1) investigations of mercury cycling in aquatic environments (especially methylmercury production and degradation); 2) investigations into the role of non-rainfall moisture and associated trace element deposition in carbon cycling in arid environments; 3) synthesis and characterization of novel thin film photo and oxygen reduction catalysts; 4) sourcing provenance and trade routes of archaeological materials from Asia and the American Southwest; and 5) characterization of interactions between synthetic transition metal complexes and proteins.